Astronomical Studies with the Caltech Submillimeter Observatory

Name: Richard E. Barvainis
Date: 11/16/2005 11:12 AM
Keyword: Abstract
Note:
The Caltech Submillimeter Observatory employs a precision 10.4-meter-diameter
telescope operating within a dome to observe the sky at submillimeter wavelengths.
This award will continue funding for the next three years for observatory operations,
staff and student support, and for instrumentation development. Areas of research will
include studies of molecular gas and dust in distant primeval galaxies, large-scale
imaging of star-forming clouds using powerful new bolometer cameras, and
observations of the Sunyaev-Zeldovich effect on the cosmic microwave background.
Instrumentation will be developed to increase overall system sensitivity and mapping
speed. The CSO trains many undergraduate students, graduate students and
postdoctoral fellows, in both observational science and instrumentation development. A
considerable fraction of telescope time is allocated to students, both at Caltech and at
other institutions; overall, more than 50% of telescope usage is by astronomers from
outside of Caltech. The CSO is noteworthy for its pioneering research in astronomical
receiver technology, which is used at many other observatories both national and
worldwide.
NATIONAL SCIENCE FOUNDATION
Diary Note
Proposal:0540882 PI Name:Phillips, Thomas G.
Printed from eJacket: 11/16/05 Page 1 of 1